Context and Learning in Visual Processing

One of the most fundamental problems in visual perception and cognition is
information overload. Given limited processing capacity, there's simply
too much perceptual information competing for the control of thought and
action. Hence, observers must use selective attention to rapidly
prioritize which aspects of a complex scene are most relevant to behavior.
For instance, drivers must be able to efficiently locate and identify
traffic signals and stop signs amidst a dizzying mosaic of visual
information. People are highly adept at this, while artificial systems are
not. This is because human observers employ powerful top-down knowledge
to guide their perceptual interactions with the complex environment.
Top-down knowledge is useful because the visual world is highly
structured. For example, spatial layout of landmarks are relatively
stable, certain objects tend to covary with others (toasters with ovens,
desks with lamps, etc.), and even moving objects such as cars tend to move
around in systematic, predictable ways. Sensitivity to this structure,
presented to observers in the form of global visual context, provides
useful constraints on visual processing. Importantly, this contextual
information must be "learned" by perceivers. Thus, the goal of this
project is to establish the importance of contextual information and
learning mechanisms in object recognition and visual search. The first
set of studies examines how visual contexts are defined, how contextual
information is learned and represented, and how learned information is
applied to new instances. The second set of studies examines how temporal
context information influences visual processing, and whether learning
affects other visual processes such as the ability to segregate figure
from ground. Successful completion of these studies will provide important
insights into top-down processing and learning mechanisms in human vision.
This understanding will be applicable to the design of more effective
artificial systems, enabling these to benefit from perceptual experience
as people do.